Graduate Honorable Mention Award: Coit Cook Ford

This special minority award will give Ph.D. student Coit Cook Ford additional flexibility in pursuing his graduate studies and research initiation in political science. This award will strengthen minority research participation in this area.